Research Initiation: Mist Cooling and Droplet Deposition from a Heated Turbulent Gas Stream

This study concerns a fundamental investigation in two-phase heat transfer. Specifically, the heat transfer characteristics of mist cooling and droplet behavior in two-phase suspension flow are to be studied by experimental and theoretical means.